International Statistical Institute Travel Grant

Abstract
DMS-0097981 PI: Ray A. Waller

This award provides funds for a travel grant to partially support United
States participants to attend the 53rd Session of the International
Statistical Institute (ISI) in Seoul, Republic of Korea, from August 22-29,
2001. The ISI meeting is an umbrella meeting of a number of international
statistical associations with sessions of interest to thousands of
statisticians. The travel grant provides partial support to defray
transportation costs for applicants from institutions and non-profit
associations. An emphasis of the award is to encourage and provide the
opportunity for younger statisticians to participate in the meeting. Special
consideration will be given to statisticians who have received their Ph.D.
in 1991 or later and to women and minorities.